Uncertainty Analysis on a Few Fluid Models

Wang
DMS-0606671

The investigator and colleagues study the impact of using
simplified models as well as the effect of noise on uncertainty
propagation in terms of statistical solutions in several fluid
systems. The physical problems under investigation are large
Prandtl number or small Ekman number regimes in Rayleigh-Benard
convection, large Prandtl-Darcy number or small Darcy number
regimes in convection in fluid saturated porous media, and
stochastically forced quasi-geostrophic systems with random
noise. Model reduction in the parameter regimes for the
convection problems leads to singular limit problems involving
multiple time and spatial scales. One of the goals here is to
investigate what kind of statistical properties can be
approximated using the statistical properties of the simplified
models derived via singular limits. In the case of systems with
random noise, which are modeled by stochastic partial
differential equations, the investigator and his colleagues
investigate possible noise-induced statistical stabilities, i.e.,
stability of statistical properties with respect to initial
condition and parameters.

There are abundant uncertainties in nature. For instance,
prediction of the path of a hurricane is influenced by
(imperfect) information about the initial distribution of
atmospheric and sea surface temperatures, wind, and the
atmospheric jet stream, as well as by the imperfect model itself.
The climate (long-time behavior) of the earth may be influenced
by the ozone layer, concentrations of carbon dioxide, and other
factors. Transport of contaminants in ground water is influenced
by porosity and permeability of the media, which are random.
Studying the influence of various uncertainties on the
geophysical flows considered here helps us better understand the
behavior of the flows.